Research Experience for Undergraduates in Biological Sciences

9732414 Undergraduate students will participate in a summer research program in the Department of Biological Sciences at Wellesley College, an undergraduate college for women. Applications will be actively encouraged from Wellesley College Biology, Psychobiology, Biological Chemistry and Environmental Sciences majors, as well as students from regional liberal-arts colleges and universities. These students will have a serious interest in gaining research experience to add to their demonstrated academic talent. They will already have shown an ability to think independently and imaginatively, and will have strong recommendations from knowledgeable faculty at their own institutions. Participants will be selected by the project director and the participating faculty. The selected students will take part in a lively, instructive, 10-week program. Under the guidance of a faculty mentor, each student will participate fully in an active research program. This will include everything from pur